Research Universities

This award will provide partial support for the National Academy of Science (NAS) to conduct a study to examine and assess the health of US research universities, and provide recommendations to ensure these institutions continue to drive innovation in today’s global society, helping the nation meet its economic, environmental, energy, health and national security goals. The work will be performed by an expert committee, under the oversight of the NAS’ Policy and Global Affairs Board on Higher Education and Workforce. The committee is charged with 1) describing and assessing the historical development, current status, and societal impact of research institutions within the context of the nation’s research and innovation enterprises and system of higher education; 2) evaluating the organizational, financial and intellectual capacity of public and private research universities and; 3) envisioning the mission and organization of research universities in 10-20 years and the necessary steps to realization. Results from the study should aid all stakeholders of the research enterprise in support of innovation and the generation of new knowledge, essential to the future of research universities and the nation’s competitive position in a global economy for the future.